Late Quaternary Cryosphere/Ocean Interactions: Margins of the Hudson Strait Ice Stream-- SE Baffin Shelf-- NW North Atlantic

This award is in support of a one year standard grant to investigate ice ocean interactions during the late Quaternary in the Hudson Strait region of the northwest North Atlantic, which is the major sediment and meltwater route for deglaciation of the Laurentide Ice Sheet. Sediment cores will be obtained during a 1992 cruise to Hudson Strait and Frobisher Bay and these will be analyzed for: 1) carbon-14 of foraminifera, 20 stable oxygen and carbon isotopes of planktonic and benthic foraminifera, 3) down core mineralogy, and 4) changes in foraminifera species